SBIR Phase I: Hydropneumatic accumulator with a compressible regenerator

This SBIR Phase I project will develop a hydropneumatic accumulator for fluid power systems with specific applications to hybrid vehicles. The unique aspect of the accumulator design is the leaf spring construction which has the necessary air channel communications that in turn influences the heat transfer characteristics. The ability to influence the heat transfer will in turn provide a way to improve the regenerative aspects of the accumulator. The problem is significant in single accumulator systems.

The broader/commercial impacts of the proposed project will be in the many application areas of fluid power systems. In the specific application to a hybrid vehicle, there could be a fuel economy improvement. There will be a trade-off between vehicle weight and reduced fueling benefits. However, any efficiency in a fluid power system would translate into improved system efficiency, resulting in broad commercial impact.